U.S.-Czech Chemistry Research on Bridge-Substituted (n) Staffanes

INT 9413469 Michl The primary objective of this U.S.-Czech research project between Dr. Josef Michl of the University of Colorado, Boudler, and Dr. Ctibor Mazal of Masaryk University, is to extend work on assembly of supramolecular structures. On the synthetic side, laterally functionalized rods are needed. The researchers consider bridge- substituted (n)staffanes ideal; however their preparation requires more exploratory synthetic work on novel structures. The Czech participants will address this need by drawing upon their experience in classical organic synthesis to prepare small- ring compounds. Characterization of these molecules will be made by the U.S. participants. Results should contribute important, useful units to a molecular-size construction set for supramolecular products, being developed at the University of Colorado. This chemistry project in organic dynamics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.